Acquisition of a Rapid-Quench Cold-Seal Pressure Apparatus

9526338 Lange This grant awards $16,610 as one-half of the costs of acquiring equipment necessary to construct a rapid-quench, cold-seal pressure apparatus for experimental petrological research to be conducted at the University of Michigan. Specifically, the system will be used to synthesize volatile-bearing silicate liquids at low pressures (<300 MPa). These samples will then be used for low- temperature (<1000 degrees C) measurements of density, thermal expansion, viscosity, and heat capacity. In situ density (sink/float) and viscosity (falling sphere) experiments will also be conducted using volatile-bearing silicate liquids. These experiments will allow precise determination of the partial molar volume of water and other volatiles in silicate melts. ***